UNH Science Management Office: GISP2

9321499 Mayewski This award is for support for three years of funding for the Science Management Office (SMO) for the Greenland Ice Sheet Project Two (GISP2). The major tasks are: to act as an organizational tool for GISP2 principal investigators; to continue data handling and development of a "final" data set; to coordinate ice core collection activities in Denver at the National Ice Core Laboratory; to guide and organize statistical tools; to maintain current ties with the European Greenland Ice Core Project (GRIP); to include additional viewpoints and disciplines; to handle specific issues (e.g. dating and intercalibration); to coordinate workshops and meetings; to organize final products including a compendium volume and papers; and continued communications with principal investigators, other scientists, the National Science Foundation, GRIP, and the public. ***